The Role of a-Lactalbumin in Lactose Biosynthesis

Lactose is synthesized in high levels only in the lactating mammary gland. The enzyme complex "lactose synthase" is composed of two subunits, a glycosyl transferase called galactosyl transferase and a modifier protein, a-lactalbumin. Using the techniques of fluorescence, ESR and NMR, Dr. Berliner will characterize, assign and map specific cation binding and other regions on the a-lactalbumin molecule in solution. Kinetic experiments will also be employed to test the efficacy of modified calcium binding loop derivatives in lactose biosynthesis.